U.S.-Polish Joint Workshop in Real Analysis

9401673 Ciesielski The primary objective of this U.S.-Polish workshop proposed by Krzysztof Ciesielski of West Virginia University is to enable US and Polish mathematicians to present the results of their most recent research in the area of real analysis. The past decade has witnessed a reemergence of real analysis as one of the fundamental subdisciplines of mathematics. Long taught as a core course at the undergraduate and graduate levels, classical real analysis is regaining its more traditional role at the intellectual root of both modern applied and pure mathematics. Another aim of the workshop is to provide the participants with an opportunity to interact and gain a deeper understanding of the ideas presented at the workshop and identify new areas for further research in the field of real analysis. This project in mathematics fulfills the program objectives of advancing scientific knowledge by enabling leading experts in the U.S. and Poland to combine complementary efforts and capabilities in areas of strong mutual interest and competence on the basis of equality, reciprocity, and mutuality of benefit. ***